New Modes of Metallacycle and Carbene Reactivity

In this project supported by the Inorganic, Bioinorganic, and Organometallic Chemistry Program, Joseph M. O'Connor of the University of Nevada at Reno will continue studies in the area of organometallic research at the interface of metallacycle and carbene chemistry. The goal of the research is development of new carbene coupling reactions which produce ring-expanded metallacycles of iridum, rhodium, or cobalt and ultimately four- and five-membered carbocycles. Free carbene-carbene products may also be generated. In addition to the synthetic work, structural and mechanistic studies will be carried out in order to clarify the effect of coordination geometry, ancillary ligands, and ring substituents on the insertion process. %%% This research directly impinges on the role of metal carbenes in alkene metathesis, alkene and alkyne polymerization, cyclopropanation chemistry and an impressive array of synthetic organic methodology.